Multiparametric Optical Microbe Sensing with Engineered Photonic-Plasmonic Nanostructures

Reinhard
CBET-1159552
Nanoparticle assemblies generate new properties that are different from those of the isolated particles and, therefore, offer tremendous opportunities for creating new capabilities on the nanoscale. This proposal seeks to take advantage of the fact that defined arrays of gold nanoparticles have engineerable plasmon resonances whose spatial and frequency distribution can be controlled through the morphology of the array. Since the exact plasmon resonance wavelength of a noble metal nanoparticles depend on the refractive index of the environment, nanostructured noble metal surfaces are colorimetric sensors. Aperiodic metal nanostructures sustain structural color patterns which enable entirely new sensing approaches based on spatial correlation imaging. In addition, nanostructured surfaces assembled from nanoparticle clusters as building blocks can efficiently localize incident electromagnetic fields and generate high E-field enhancements. Consequently, nanoparticle cluster arrays are also superb substrates for surface enhanced Raman spectroscopy. This proposal seeks to combine the advantageous
photonic and plasmonic properties of nanostructured surfaces to develop multiparametric responders that achieve enhanced optical microbe detection and identification performance through combined analysis of elastic and inelastic light scattering processes.
Intellectual Merits
The research in this project will develop a new class of multiparametric optical microbe sensors, that can identify and detect a broad range of microbes (viruses, bacteria, spores) with high fidelity due to two subsequent sensing stages in real time. A first stage of specificity will be achieved through antibody functionalization of the sensor surface. Binding of microbes to these antibodies will be detected through a colorimetric shift in the elastically scattered light. In the second analysis step in elastically scattered light is analyzed to obtain a vibrational SERS spectrum of the microbe surface. This spectrum serves as a fingerprint of the microbe and enables its identification when combined with multivariate data analysis and appropriate library spectra. We anticipate that the SERS based identification approach will enable microbe classifications on the strain level. The proposed approach of two subsequent identification stages achieves a significant improvement in the identification reliability over conventional optical biosensors. Because SERS allows an identification of organisms on the single cell level, the proposed multiparametric sensors could pave the way to an optical analysis of “real world” samples that always contain a complex mixture of microbes. Besides these important sensing advances, the research in this proposal will also improve current capabilities to engineer photonic-plasmonic noble metal structures with defined optical responses.
Broader Impact
Reliable and rapid microbe detection is relevant in critical sensing areas such as environmental monitoring, food quality control, and homeland security. The proposed sensor could make optical microbe detection faster and more reliable and could thus impact all of the above sensing areas. In addition to the outlined scientific impacts, the research has clear educational and outreach components. The project will offer high school, undergraduate, and graduate students the opportunity to participate in a collaborative research and education program. It will form the basis for at least two PhD theses. In synergy with the laboratory research, this proposal will enable a substantial outreach program. The Principal Investigator (PI) organizes an annual NanoCamp for students from local inner city high schools, and both PI and Co-PI sponsor undergraduate students and interested high school students to obtain hands-on research experience in this interdisciplinary research effort. These outreach activities will help to enthuse junior researchers and high school students for the field of biosensing and science and technology in general.